Mathematical Sciences: Topics in Ergodic Theory and Analysis

Professor Bellow and Jones will continue their study of almost everywhere convergence questions which arise in ergodic theory and more generally in analysis. They will focus on a number of issues. Central among them are Bourgain's entropy criterion and the strong sweeping out property. They will also study problems involving averaging over thin sets such as sets of Banach density zero in the individual ergodic theorem, discrete averages in the case of a one parameter flow, annuli in the case of a two parameter flow, etc. One project on which they plan to spend some time involves almost everywhere convergence for integrable functions. This is a difficult area but the principal investigators hope to make some progress using Calderon-Zygmund decompositions. This project involves research in ergodic theory. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics" can be placed the modern theory of how groups of abstract transformations act on smooth spaces. In this way ergodic theory makes contact with geometry in its quest to classify flows on homogeneous spaces.